CSAMS, Coordinated Science Assessment Model Study

9450208 Miller High quality assessment and evaluation mechanisms to monitor the outcomes of science education reform at the high school level on a continual basis are needed for both internal and external use. Teachers, school administrators, university and college faculty, parents and students need to accept these assessments as valid measures of both quality and quantity of science learning and achievement. Three Golden State Examinations in Science (Biology, Chemistry, and Coordinated Science) have been developed and implemented on a broad scale on California high schools. This study aims to use these examinations, the students taking them, and the teachers teaching those students as basis to begin to establish the parameters and methodologies that can be most efficiently used in future large scale efforts to monitor secondary school science reforms. The study will focus (though not exclusively) on the schools working with the state Scope, and Sequence and Coordination (SS&C) project reforms. The Golden State Examination development and implementation has been a collaborative effort of school science teachers and college science faculty. This teamwork has been a valuable professional development opportunity for several hundred science teachers, involved in various facets of the examination, such as development committees, scoring teams, portfolio judges, and as workshop leaders. This study will add a research component to this evaluation design and data analysis among core groups of these teachers. The majority of those involved will be from schools heavily involved in implementing high quality coordinated or integrated science from all students, which is the platform of California's SS&C project. These teachers will design surveys to monitor attitudes and pathways of learning of students, and progressive subject matter tests, will score essays, performance tasks, and portfolios, and will analyze results to make recommendations for future assessmen t and evaluation implementation efforts.